Upgrading Computing Hardware to Support Geoscience Initiatives

0001918
Slingerland

This grant provides partial support of the costs of upgrading computational equipment within the Geosciences Department at Penn State University (PSU). High end multi-CPU servers and networked workstations will allow sharing of computational resources by various targeted research groups, postdocs, and graduate and undergraduate students. The equipment will be used for a wide array of compute intensive research in the earth sciences including: seismological research aimed at elucidating the structure of continental crust and volcanic plumbing systems; studies of the geodynamic evolution of active plate margins; modeling of fluvial erosional processes and landscape evolution; modeling basin sedimentation processes; and simulations of chemical reactions and kinetics at mineral-water interfaces.
***